Magneto-optical Study of Zinc-Selenide/Zinc-Iron-Selenide Quantum Wells; A System with Magnetically Tuned Confinement

This research is concerned with studies of zinc-selenide/zinc- iron-selenide quantum well structres and zinc-iron-selenide epilayers of high quality which have been grown by molecular beam epotaxy (MBE) technique. These structures have the unusual property that the hole confinement is determined by an externally applied magnetic field. This situation leads to a novel situation concerning the different types of excitons which has never been observed in a dilute magnetic semiconductor. The zinc-selenide/zinc-iron-selenide system offers a unique opportunity to tune the quantum well potential and control the carrier confinement using an external magnetic field. Magneto- reflectance and magneto-luminescence spectroscopy measurements will be made exploring the parameter space of this system (layer thickness, iron concentration, number of wells) as well as the dependence on temperature and magnetic field. These magneto- optical studies will also be extended to doped systems.